Optics and Photonics Training for Inquisitive eXperimentalists (OPTIX)

This award supports Optics and Photonics Training for Inquisitive eXperimentalists (OPTIX), a project to create an innovative, hands-on laboratory environment at Willamette University where undergraduate sophomores and juniors can work with research grade optics equipment in a dedicated space designed to foster deep, inquiry-based learning. Students will complete carefully designed modules that encourage creativity and independence, preparing them better for a more rigorous and meaningful senior year capstone project and giving them vital skills and motivation for a career in the STEM fields after graduation. Modules will also be developed for local community college students at Chemeketa Community College, and an optics related hands-on exhibition for the Gilbert House Children's Museum in Salem, OR.

The optics modules will require different levels of student sophistication, training, and involvement. The most basic optics module will provide an introduction to optics, and serve as a gateway to the more advanced activities. Students at the sophomore level then continue taking three additional basic modules that introduce them to more sophisticated ideas and techniques. The focus at the junior level is on intermediate modules, some of which are extensions of modules encountered during the sophomore year and others which lead into the advanced modules that students can take in their senior year or as independent research projects to prepare them for the transition into research labs. The effectiveness of this initiative will be ascertained by assessing student skills and attitudes before, during, and after exposure to OPTIX modules with the help of an external evaluator.